Regulation of Chloroplast ATPase

This proposal the basis of the phenomenon whereby the chloroplast ATPase can be activated either by light, or sulfite ions (but in the dark). This unusual effect counteracts (by-passes) inhibition by tightly bound ADP, and allows construction of a chemical model for the effects of membrance high-energy state on the ATPase. The effects of sulfite stimulation of uni-site catalysis in spinach thylakoids vs. effect on steady state rates will be among the objects of this study.